Experimental Research in the Physics of Elementary Particles

This action will provide continued support for an active group of two senior investigators and students for experiments on the scattering of high energy muons from nuclei. The data is collected at Fermilab's Tevatron accelerator. Fermilab experiment E665, "Deep Inelastic Muon Scattering with Hadron Detection" was first exposed to the muon beam in the summer of 1985. In March of 1990 the experiment was prepared to begin its final run. To date, scattering studies have been completed with heavy nuclear targets. By January 1992, the scattering data from hydrogen and deuterium should be complete and the final analysis begun. These experiments probe the structure of nuclear matter and the formation processes for strongly interacting particles. It is closely related to the scattering of neutrinos by nuclear matter and electron proton collisions, also supported by the National Science Foundation. In the out years of the grant period, other activities will be started including instrumentation development for the Superconducting Super Collider.